U.S.-Australia Cooperative Research: Studies in Non-Perturbative QCD and Hadron Dynamics

The principal U.S. participants in this project are Prof. Peter Tandy of Kent State University and Dr. Craig Roberts of Argonne National Laboratory. Also associated with the project are Dr. Michael Frank from Hampton University and Dr. David Kahana, an NSF-supported post-doctoral associate at Kent State University. The primary Australian participants are Prof. Bruce McKellar of the University of Melbourne and Dr. Reginald Cahill of the Flinders University of South Australia. This award will provide travel support over a two year period for the American participants to visit the laboratories of the Australian colleagues. The cooperative research to be undertaken is in the area of non-perturbative studies in Quantum Chromodynamics (QCD) and QCD modelling. The experimental work will probe issues in nuclear dynamics that have no clear separation between baryon- meson degrees of freedom and quark-gluon degrees of freedom. Important tools for addressing such issues are effective QCD models of hadron dynamics. The topics to be investigated include the determination of the structure of the quark propagator through study of the QCD Schwinger-Dyson equations, the construction of covariant, confining models of QCD based on these studies, the quark structure and interactions of baryons and mesons in such models and the electroweak couplings and form factors of these quark and quark-antiquark composites. The exchange visits by Drs. McKellar and Cahill are being supported through the Australian Department of Industry, Technology and Commerce (DITAC).